Engineering Research Center for Net Shape Manufacturing

The focus of the Engineering Research Center for Net Shape Manufacturing at Ohio State University is on cost-effective net- shape manufacturing of discrete parts. Net shape manufacturing intends to produce discrete parts to finish dimensions so that little or no machining is required prior to assembly. The integration and optimization of product and process design offer great opportunities for savings in time, cost, and resources. Moreover, net-shape productions (molding, forging, sheet forming, casting) are major economic forms of production, and advances in these technologies will make an important contribution to national competitiveness. The goals of the Center are to develop manufacturing knowledge and design tools and people trained in net shape design and manufacturing. The strategic plan of the center is to create an integrated design system offering a choice of materials, metals or plastics, and manufacturing processes in the design and production of net-shape parts. There are four principal thrust areas: billet forming, sheet forming, processing of polymers and composites, and precision and die casting. However, the strategy has been refined both as to the concepts and timing for integration. Knowledge produced in these areas will be integrated as data bases and simulation tools on (1) the behavior of materials, (2) interface phenomena, (3) mechanics of shape change, and (4) characterizations of tooling and machines. Over the next five years, the Center will create a prototype integrated design system for net shape manufacturing, utilizing that data and simulations. The Engineering School has established a graduate program in Manufacturing and Systems Engineering, of which the Center Director is also the Program Director. The Center is a key element in the Engineering School's building up of manufacturing education and research at Ohio State University. The Center has also been innovative in creating a special industrially-sponsored fellowship program to encourage students with U.S. nationality into manufacturing. The Center has established a strong working relationship with industrial firms, obtaining the sponsorship of 45 firms, from large to small, including support from the Society of Die Casting Engineers.